ARI-MA: Development of High Rate, Excellent Energy Resolution, Radiation Damage Intensive, Liquid Krypton Gamma Ray Detector for Use in High Radiation Environments

The award extends liquid Noble Gas (LNG) detector technology from the low rate, low radiation background environments as has been developed for astrophysical dark matter searches, to the high rate, high radiation environment found near spent fuel assemblies. LNG gamma ray detection technology will alleviate many of the count rate and radiation damage problems which crystal detectors encounter in high radiation environments.

The development of LNG gamma ray detectors fits DNDO's strategic planning which intends an integrated, mutually enhancing infrastructure for detection, coordination, and response, as safe guards measures used for Special Nuclear Materials (SNM) accounting is a block to one of the pathways to Nuclear Terrorism. The award will provide an excellent training of graduate students in both physics and nuclear engineering.